Design of Experiments (DOE) Based Automatic Process Control (APC): A Methodology for Process Variation Reduction Beyond Robust Parameter Design

This project focuses on the development of automatic process control (APC) methodologies based on Design of Experiments (DOE) regression models and real-time measurement or estimation of noise factors. The central idea of the proposed research is to develop a methodology to achieve automatic process control by integrating the disciplines of DOE, SPC, and control and estimation theory. Various fundamental issues will be studied, which include: (1) a new classification of controllable factors and noise factors applicable to serve as feedback information for APC; (2) test design and analysis of DOE for process modeling with consideration of system identifiability for the control purpose; (3) cautious control strategy with consideration of uncertainties in DOE regression models and noise factor estimation; and (4) on-line DOE model updating and adaptive control with supervision.

The success of the research will lead to a new scientific basis and practical tools for designing and implementing APC in complex manufacturing processes. The research expands the existing theory in each of the three well-developed disciplines of DOE, SPC, and APC to form a new "DOE-based APC" methodology. This new methodology, in conjunction with robust design and SPC, will provide more effective techniques for a broad range of manufacturing processes. Examples of such processes include stamping, forging, semiconductor, and composite material manufacturing processes.